Enhancing Environmental Science Experiences for Alaskans

This project adds a hands-on laboratory component to an environmental assessments course taken by ecology majors and some education majors, thus improving student knowledge of techniques and problems in monitoring and assessing environmental issues. The students are largely Alaskan natives, many of whom become elementary teachers in rural Alaska. The course emphasizes the study of the local environment. The equipment added includes: a portable and a stationary gas chromatograph (GOW/MAC), ion analyzer electrodes, an electronic balance, a water purification system (Millipore), a benchtop sterilizer (Barnstead), and 8 each stereo and compound microscopes. The laboratories are designed to help students develop competency in environmental monitoring and sampling, laboratory analysis of samples, the use of descriptive and inferential statistics and report generation. Projects include: 1) Analysis of water for a) bacteriologic contamination, b) dissolved oxygen and biological oxygen demand, c) nutrients such as ammonia and nitrates; 2) Analysis of water and land habitats for community structure, species diversity and indicator species, and 3) Monitoring of air quality for noxious gases (NO2, SO2, NO, CO) and particulates.